Solar System Interaction with the Local Interstellar Cloud

The goal of the proposed theoretical study is to make a significant step toward developing a 3D model of the Solar Wind interaction with the Local Interstellar Cloud. A full model should include the effects of interstellar neutrals and plasma, galactic and anomalous cosmic rays, solar and interstellar magnetic fields, interstallar dust. This is a very complicated problem, and the applicant will focus on interstellar atom flow modelling. This modelling will be performed on the basis of numerical solution of the kinetic Boltzmann equation and the Monte-Carlo method. The work will be done at the University of Southern California, Los Angeles, California, under guidance of Principal Investigator Professor Mike Gruntman.